Planning Grant Proposal: Virginia Tech Affiliation with the Center for Engineering Logistics & Distribution (CELDi)

Virginia Polytechnic Institute (VPI) seeks to join the existing multi-university Industry/University Cooperative Research Center for Engineering Logistics and Distribution. VPI will increase the research capabilities and activities of the center by focusing on design, modeling, and analysis of large-scale logistics systems.